Move, Adapt, or Change: Examining the Adaptive Capacity of a Southern Ocean Apex Predator, the Leopard Seal

The leopard seal (Hydrurga leptonyx) is an enigmatic apex predator in the rapidly changing Southern Ocean. As top predators, leopard seals play a disproportionately large role in ecosystem functioning and act as sentinel species that can track habitat changes. How leopard seals respond to a warming environment depends on their adaptive capacity, that is a species’ ability to cope with environmental change. However, leopard seals are one of the least studied apex predators on Earth, hindering our ability to predict how the species is responding to polar environmental changes. Investigating the adaptability of Antarctic biota in a changing system aligns with NSF’s Strategic Vision for Investments in Antarctic and Southern Ocean Research. This research, which is tightly integrated with educational and outreach activities, will increase diversity in STEM and Antarctic science by recruiting students from historically underrepresented groups in STEM and providing training, mentoring, and educational opportunities at an emerging Hispanic Serving Institution and a Historically Black Colleges and Universities campus. This project will improve STEM education and science literacy via museum collaborations, creation of informational videos and original artwork depicting the research. The proposal supports data and sample reuse in polar research and long-term reuse of scientific data, thereby maximizing NSF’s investment in previous field research and reducing operational costs.

The researchers will investigate leopard seals adaptive capacity to the warming Southern Ocean by quantifying their ability to move (dispersal ability), adapt (genetic diversity), and change (plasticity). Aim 1 of the research will determine leopard seals’ dispersal ability by assessing their distribution and movement patterns. Aim 2 will quantify genetic diversity by analyzing genetic variability and population structure and Aim 3 will examine phenotypic plasticity by evaluating changes in their ecological niche and physiological responses. The international, multidisciplinary team will analyze existing data (e.g., photographs, census data, life history data, tissue samples, body morphometrics) collected from leopard seals across the Southern Ocean over the last decade. Additionally, land- and ship-based field efforts will generate comparable data from unsampled regions in the Southern Ocean. The research project will analyze these historical and contemporary datasets to evaluate the adaptive capacity of leopard seals against the rapidly warming Southern Ocean. This research is significant because changes in the distribution, genetic diversity, and ecophysiology of leopard seals can dramatically restructure polar and subpolar communities. Further, the research will expand understanding of leopard seals’ ecological role, likely characterizing the species as flexible polar and subpolar predators throughout the Southern Hemisphere. The findings of this research will be relevant for use in ecosystem-based management decisions—including the design of Marine Protected Areas— across three continents. This study will highlight intrinsic traits that determine species’ adaptive capacity, as well as showcase the dynamic links between polar and subpolar ecosystems.